Center for BioFuel Research and Development

A planning meeting will be held to determine if a multi-university Industry/University Cooperative Research Center for BioFuels Research and Development will be established at the South Dakota School of Mines and Technology with the University of Kansas, South Dakota State University and Kansas State University. The research of this proposed center will include sustainable feedstock development, fuel and product generation and purification, and fuel characterization, modeling, storage and distribution.

The proposed center will leverage resources from multiple sources to build critical infrastructure, conduct ground-breaking basic and applied research, and transform that research into commercial activities. These features will help build the center into a sustainable, nationally recognized research and development center.